Quantum Affine Algebras, Yangians and Quantum Vertex Algebras

In this research project, it is planned to establish and study vertex algebra-like
structures associated with quantum affine algebras, Yangians (including
centrally extended Yangian doubles), Zamolodchikov-Faddeev algebras, and
extended affine Lie algebras. In particular, it is to establish a natural
connection of Yangians and Zamolodchikov-Faddeev algebras with quantum
vertex algebras, and a natural connection of all extended affine Lie
algebras with vertex algebras through a new notion of quasimodule.

The celebrated quantum groups (including quantum affine algebras and
Yangians) and the Zamolodchikov-Faddeev algebras have played crucial
roles in mathematical physics and they are of high interest and great
importance in mathematics. On the other hand, vertex algebras and quantum vertex
algebras, which are new fundamental classes of algebraic structures
and which have deep interactions with many mathematical fields, provide a
mathematical foundation for the study of quantum conformal field theory.
The general problem planned to solve in this project is to establish bridges
to connect these algebras. Such desired bridges will enable us to study all
the algebras with a new perspective and a complete solution will have great
impacts in the general theory of algebras and will have important
applications in physics.